Computations in Pure and Applied Mathematics

The Department of Mathematics of the University of Wisconsin - Madison
will purchase the equipment:

1. Two four-processor computer servers, and

2. Four smaller linked one-processor workstations, for visualization,

which will be dedicated to the support of research in the mathematical
sciences in a mathematics computation room. The equipment will be used
for several research projects, including in particular:

1. Computations in Wave Turbulence with applications to wave spectra of
ocean and atmospheric waves;

2. Computations in Group Cohomology;

3. Modeling locomotion in ascaris;

4. Computations in Spatial Systems.